The Extent and Cause of Earthquake Strong Ground Motion Variations Measured by SMART-2 Accelerograph Array in Taiwan

This action is for support of a new earthquake accelerograph array at Hualien, Taiwan. This accelerograph (strong ground motion recording) array is referred to as SMART-2, an acronym for Strong Motion Array in Taiwan, support for the existing SMART-1 accelerograph array at Lotung, Taiwan. It is also a continuation of a collaboration with the Nuclear Regulatory Commission and the Electric Power Research Institute in the U.S. and the Institute of Earth Sciences, Academia Sinica in Taiwan. In this collaboration, the U.S. institutions were initially the major supporters, but this has progressively changed until now the major support for this project is provided by the Academia Sinica. SMART-1 has logged a large number of earthquake strong ground motion records, which have been used extensively by researchers and practitioners in the United States. SMART-2 is on harder soil, which is more typical of the foundation material on which most major structures are erected; thus it promises to provide strong motion records of even greater value to engineers. As operation of SMART-1 will continue, it is expected that SMART-1 and SMART-2 will record the same earthquakes, yielding valuable information on the propagation of earthquake motions, especially those motions close to the epicenter. The Institute of Earth Sciences is responsible for purchasing and installing the digital recorders, preparation of the instrument sites,providing staff for the SMART-2 operations, and for developing the algorithms used tom process the strong motion records. The NSF is responsible for (1) helping establish the dissemination and basic processing of seismic motions recorded by SMART-2, (2) assisting in the integration of SMART-2 data with that from the smaller scale three-dimensional array operated by utility engineering groups for studies of soil- structure interaction; and (3) the initiation of basic research into the variation of strong ground motion and other ground motion problems treated first at SMART-1 on "soft" soil.